Theoretical Investigation of the Inner Accretion Flow in Active Galactic Nuclei

Theoretical investigation of the inner accretion flow in active galactic nulcei

Omer M Blaes

The centers of active galaxies are thought to contain supermassive black holes. Surrounding these black holes are disks of matter that accrete material from the galaxy and feed it into the black hole. The nature of the innermost regions of accretion flows into these supermassive black holes is poorly understood. Most of the total power presumably originates in these sourves. This is the region where the effects of general relativity are the strongest.

Dr. Blaes is investigating the properties of the inner accretion flow through two theoretical approaches:

(1)The first approach consists of well posed, mathematical calculations of the interaction between the "photon-bubble" instability and the magnetorotational (Balbus-Hawley) instabilities; both of which should exists in the inner accretion flow and both of which will directly govern the dynamical and thermodynamical properties of the flow.

(2) The second approach concerns a more phenomenological modeling of a variety of possible geometries to try and fit the observed spectral and variability behavior.